A Modular, Integrated, College Science Course for Pre-Service Elementary Teachers and Other Non-Technical Major

This project develops a broad-based, interdisciplinary approach for future elementary school teachers leading to a positive attitude toward science. Twenty teaching modules are developed that covers major science concepts and inquiry skills outlined in national and states standards. Each module is designed for two weeks of class time. While the approach is specifically designed for pre-service teachers, it also meets well the needs of all non-SMET majors. The modules also provide an excellent format for in-service development.